Presidential Young Investigator Award: Computed-Aided Design of ULSI Circuits

Bushnell The research is in various facets of automatic test pattern generation (ATPG). Problems being considered include: false timing path detection algorithms; reduction in memory requirements for ATPG for very large state machines; neural net- based, switch-level algorithms for ATPG; parallel algorithms for ATPG; robust delay fault built-in self- testing circuits; statistical delay fault simulation. Software for algorithms is being developed. Additionally, a distributed data base retrieval algorithm that operates on a network of work stations is being explored.